A Hybrid Asymptotic Model Analysis Method for Structural- Acoustics

9501285 Franzoni This CAREER award deals with research and educational development in the area of structural dynamics and acoustics with a special emphasis on the Asymptotic Modal Analysis (AMA) method. This method is particularly suited for a study of complex dynamic systems in the middle-to-high frequency range with moderate -to- large levels of damping such as in the case of transportation and flight vehicles. The currently available AMA method is extended to AMA - hybrid method, which predicts responses of moderately to highly damped systems. This is a combination of AMA and perturbation methods that yields physical insights into the role of modal coupling and damping and closed form solutions. The educational component includes teaching, mentoring, outreach, and extension activities aimed at pre college students, undergraduates, graduate students, and practicing engineers. Examples include administering a summer program for high school students, supervising undergraduate research projects, mentoring graduate students, and organizing technical meetings with tutorials for the exchange of ideas between the academe and the industry.***